Research Experiences for Undergraduates in Chemistry at Delta State University

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. Eight undergraduate students will spend ten weeks during the summer engaged in basic research under the direction of the faculty members in the Chemistry Department. Students will be recruited from historically Black campuses in Mississippi. Each of four faculty mentors will work with two undergraduates, addressing water quality research from the standpoint of their specialities (Analytical, Inorganic, Physical, and Biochemistry). A seminar will bring all faculty and students together on a daily basis, building strong student-student and student-faculty relationships. Participants will also work with a wide variety of chemistry instrumentation not otherwise available to them. Related research skills for the chemist will be developed, including software applications, statistics, and on-line bibliographical retrieval.